Mathematical Study of Smectic Liquid Crystals

Joo
DMS-0908538

The investigator and her colleague study mathematically the
interaction of smectic liquid crystals with external electric or
magnetic fields. Typical liquid crystals are nematic and smectic
liquid crystals, consisting of rod-like molecules that tend to
align themselves lengthwise along a common axis, called the
director. The local orientation of a nematic liquid crystal is
described by the director field. However, in smectic phases the
molecules of the liquid crystal also tend to lie in layers. To
describe the local orientation, a smectic order parameter must be
introduced in addition to the director field. The free energy of
smectic liquid crystals has a resemblance to the Ginzburg-Landau
energy for superconductivity, and it is a nonlinear, nonconvex
second order energy. While nematic phases are rather well
understood, the mathematical theory of smectic phases is
comparatively underdeveloped. This study consists of two main
projects. In the first project, the investigators advance the
mathematical understanding of smectic liquid crystals in the area
of instabilities driven by external magnetic fields, by means of
mathematical analysis and numerical simulations. Partial
differential equation methods for phase transition, calculus of
variations, Gamma convergence theory, and bifurcation theory are
employed. In the second project, the investigators study
ferroelectric liquid crystals such as smectic C* and bent-core
phases, which are named after the bent or banana-shaped
molecules. The response time of bent-core liquid crystals is
only in the range of microseconds and thus this material offers
huge potential for many applications. The investigator studies
an electrodynamic model of the molecular reorientation of
ferroelectric liquid crystals.

Liquid crystals are used in many different applications such
as optical switching devices and temperature sensors. Nematic
liquid crystal materials have been widely studied because of
their applications to flat panel displays. However, it is known
that ferroelectric liquid crystals such as smectic C phases with
chiral molecules exhibit much faster switching times. Thus
understanding the features of smectic liquid crystals such as
defect structures and switching dynamics is a very important
issue in practical applications.